Constructive Conceptual Design

The research will begin by examining more than six existing implementations of design paradigms to isolate and specify the primitive design elements provided in each. These sets will then be abstracted mathematically to determine their functional behavior. Function in this context is defined as the controlled application of power. The input/output characteristics produced will be proven general within a domain to be determined. An algorithm will be sought for construction of functional topologies from functional specifications, and the problem of mapping the elements of such functional topologies onto real design components will be considered. Several large ancillary problems will be approached, including the potentials for domain-independent automatic design. The goal is a method for rigorously examining functional design, providing an underlying basis for application of existing abstract theories of design. Such a basis will have the benefit of theoretical soundness, free from the ad hoc empiricism of existing approaches. A basis for writing and proving theorems in and about design and designs will be formed.